Mathematical Sciences: VLSI Modeling and Algorithms for Nonlinear Systems

Fundamental studies of existence and stability of solutions to a mathematical model for semiconductor performance will be performed. Globally convergent Newton/continuation methods will be examined by studying the eigenvalue structure of the underlying linearizations. Attention will be focused on the partial differential equations that arise in VLSI chip design. Some aspects of process simulation diffusion (which occurs in the context of free boundary/flow problems) will be studied from the standpoint of mathematical modeling.